A Software System for Algebraic Geometry Research

Stillman
9970348
Stillman and his colleague Grayson collaborate in developing
the computer software system Macaulay 2, a symbolic computer
algebra program that supports large scale research computing
projects dealing with systems of polynomial equations in many
variables. The program's many functions depend mainly on
variants of the Groebner basis algorithm for computing standard
bases and syzygies of ideals and modules over polynomial rings.
The results yield quantitative and qualitative information about
solutions of such systems of equations. In this project the
investigators develop new algorithms, improve existing algorithms
and implementations, improve the documentation, add new features,
improve the program's efficiency, and make it more useable. They
also provide a web-accessible computation server to facilitate
contributions from and collaborations between the Internet-based
community of users. These interchanges improve the algorithms
and scope of Macaulay 2. Stillman also continues his research in
computational commutative algebra and algebraic geometry, as well
as into problems involving generalized Green's conjectures,
Castelnuovo-Mumford regularity, toric varieties and binomial
ideals. Grayson also continues his research into algebraic
K-theory concerning the connection between algebraic K-theory and
motivic cohomology as mediated by filtrations of the K-theory
space.
The goal of this project is to turn Macaulay 2 into the
premiere collaborative research tool for mathematicians and
others around the world whose work involves systems of polynomial
equations. Such research is important because systems of
polynomial equations arise whenever mathematics is used as a tool
in science, for example, in engineering, in physics, and in
biology. The project extends the algorithms, efficiency, and
scope of Macaulay 2, provides an Internet server for users, and
provides an Internet-based forum for users to contribute Macaulay
2 packages and to collaborate on the solution of mathematics and
applications problems. The project also involves the training of
students in both mathematics and symbolic computation.